Some Questions in Inverse Problems and the Mixed Problem for Laplace's Equation in Lipschitz Domains

This project will study several questions in partial differential
equations which lead to interesting questions in harmonic
analysis. The first set of questions are related to the inverse
conductivity problem as studied by Sylvester and Uhlmann. My main
interest is considering the a priori regularity assumption which seem
to be necessary to study this problem. I propose a technique to
establish a uniqueness theorem in dimensions 3 and larger for
coefficients which only have one derivative. In addition, I will
consider the two-dimensional problem, where such a theorem is
known. In two dimensions, I propose to extend the result from
equations to systems. The second set of questions are related to the
mixed problem for Laplace's equation. The goal here is to obtain
optimal regularity results for solutions to these problems. Examples
indicate that the positive result depend strongly on the geometry of
the domain and the sets where Dirichlet and Neumann data are
posed.

The inverse conductivity problem is a mathematical formulation of the
problem of determining the interior physical properties of an object
by making electrical measurements at the boundary. This and related
problems are of practical importance in medical imaging and in the
nondestructive evaluation of materials. The theoretical investigations
proposed in this project may shed some light on how to improve
practical implementation of these problems. The mixed problem for
Laplace's equation models the problem of determining the temperature
in the interior of a solid where part of the boundary is insulated.
My research is focused on understanding how the geometry of the
region of the region affects our ability to solve this problem.